Thawing of Warm Permafrost in Response to Climatic Change and Human Activities

This award supports a continuing program of permafrost monitoring in Alaska that began in 1977. Temperature measurements of the air, the active layer, and the permafrost will be recorded at several sites by automated data logging systems. The physical state of permafrost is a very sensitive indicator of long term changes in surface temperature and also is an important parameter for climate models. Permafrost monitoring is crucial to understanding the processes of interaction between soil, groundwater, and the atmosphere.